Solubility of Na- and Ca- Silicate Buffers and Na and Ca Speciation in Supercritical Chloride Solutions

The principal investigator will study the solubility of silicate minerals in various aqueous solutions at elevated temperatures and pressures. Measurements to 5 kilobars will provide data in a pressure range for which no data currently exist. These data are important to understanding the interaction between fluids and rocks during metamorphism of the Earth's crust.